SBIR Phase II: High-Density Microcapillary Bioplate

This Small Business Innovation Research (SBIR) Phase II research project will aid in the development of high-density glass microcapillary bioplates that will offer complete flexibility in the choice of diameter and thickness of the capillaries. These features are not currently available in an exiting product. Through an innovative low-cost fabrication approach, the disposable bioplate will allow for massive parallel experimentation that is crucial for large-scale high-integrity measurements.

The proposed research will provide for a dramatic and cost effective increase in high-throughput screening programs in all phases of drug discovery and target validation. The ability to accelerate the analysis of targets in a cost effective manner will provide for more effective screening programs.